WORKSHOP: Doctoral Consortium at the PETRA 2011 Conference

This is funding to support a doctoral consortium (workshop) of approximately 10 promising graduate students from U.S. institutions of higher learning along with 9 distinguished research faculty, to be held in conjunction with the Fourth International Conference on Pervasive Technologies Related to Assistive Environments (PETRA 2011), which will take place May 25-27, 2011, on the island of Crete, Greece (http://www.petrae.org). PETRA is the only annual conference that brings together theoreticians and practitioners from a wide variety of disciplines to focus on the application of pervasive technologies to assistive environments. What connects different disciplines in this highly interdisciplinary but topical conference is the ability to discover new alliances, share data and design new methods that have real-world social impact while also advancing each field scientifically. PETRA 2011 will address timely computational challenges including integration mechanisms of diverse sensor technologies, modeling heterogeneous data, synthesis and analysis of data streams, privacy and security of information, ranking, cleaning, storing and retrieving sensor data streams for pattern analysis and discovery, robust remote rehabilitation mechanisms, correlating brain imaging with behavioral imaging, handling intensive real time data in complex environments, and ways to interpret seemingly meaningless data in order to derive meaningful human behavioral patterns and/or to identify important "events" or changes. PETRA 2011 will also study vital issues in privacy and security in monitoring ambient intelligent environments with the goal of identifying and predicting risks, intrusions, unauthorized access to information, or information leaking. PETRA projects assume a human is at the center of "cyberphysical systems" where the digital world merges with the physical.

The goals of the Doctoral Consortium are to increase the exposure and visibility of the participants' work within the community, to help establish a sense of community among this next generation of researchers, and to help foster their research efforts by providing substantive feedback and guidance in a supportive and interactive environment from a group of senior researchers. Student participants in the Doctoral Consortium will be drawn from diverse communities including computer science, engineering, psychology, social science, neuroscience, human-computer interaction, cognitive science and communication. They will make formal presentations of their work and will receive feedback from a faculty panel; the feedback is geared to helping students understand and articulate how their work is positioned relative to other research, whether their topics are adequately focused for thesis research projects, whether their methods are correctly chosen and applied, and whether their results are appropriately analyzed and presented. The workshop faculty members will bring a wide spectrum of expertise, and provide student mentoring and coordination. Doctoral Consortium attendees will be asked to create and maintain "conference workbook" (webpage) where along with their work they include feedback on papers they attended and observations that they gathered (e.g., through meetings and discussions with conference speakers and other participants) that will apply to and impact their work. Short papers on the participants' work will be published in the Conference Proceedings (which are included in the ACM Digital Library), and a summary report on the event will be posted on the conference website.

Broader Impacts: The PETRA 2011 Doctoral Consortium will bring together some of the best students, researchers and practitioners in relevant fields, and will thereby afford the younger participants a unique opportunity to gain wider exposure for their innovative ideas while also receiving reinforcement for the importance and value of conducting research with societal impact. The workshop will allow the junior participants to create a social network both among themselves and with senior colleagues. The organizing committee will make a concerted effort to attract participants who are women, members of under-represented minorities, and persons with disabilities.